Northeastern University Gateway to NSFnet

Northeastern University has several researchers who would benefit from access to supercomputing. Through this grant for connection to NSFNET, they will be able to access six federally-funded supercomputing centers which are linked by the National Science Foundation Network (NSFNET). The campus will be connected by a medium speed (56,000 baud per second) communication line to the JVNC network as part of a New England extension to their already existing consortium network. This communication line as well as the gateway/router will be provided by the John von Neumann Center through a supplemental grant to their current award. Network management service will also be provided by JVNC.